Upgrade of UT Southwestern Imaging Core Facility

The Imaging Core Facility at the University of Texas Southwestern MedicalCenter at Dallas will be upgraded and expanded. This will allow for increased and more efficient use of the facility and also for the acquisition of powerful new technologies such as micro-FRAP and micro-CALl. Among the many systems and problems that will be studied using this facility are: the regulation and function of kinase pathways; the assembly of peroxisome organelles; the regulation of contractile and motile function in smooth and non-muscle cells; and the role of and constraints on diffussion of cellular components in cellular reactions.